Cellular and Biomechanical Analysis of Convergence and Extension

The objective of the proposed research is to develop explants of the dorsal axial tissues of the Xenopus laevis gastrula as an experimental system in which the biochemical mechanisms responsible for convergence and extension of these tissues can be linked to molecular and cellular events. The project involves combining skills and methodologies in bioengineering, biomechanics, cell and developmental biology. We have developed a miniaturized force- measuring device the "Histowiggler", that allows us to measure the mechanical properties of embryonic tissues and the forces they generate in standard engineering measures useful for mechanical analysis and mathematical modelling. We will use this device to measure the mechanical properties of explants of dorsal axial tissues and the forces they generate during normal convergence and extension and after experimental treatments known to affect gastrulation in whole embryos. Normal and experimentally altered cell behavior will be recorded by analyzing shapes and arrangements of fluorescein dextran-labeled cells indirectly with histology and directly with low-light fluorescence microscopy and video image processing and recording. Cytoskeletal structure under normal and experimental conditions will be evaluated with immunocytochemistry and electron microscopy. The results are expected to contribute to our understanding of how cytoskeletal structures and cell behaviors generate the mechanical properties and forces driving convergence and extension of the axial mesoderm. This system will be a step in the direction of developing routine methods of analyzing the biomechanical function of molecules and cell behaviors.